Seismic Modeling & Analysis of Asymmetric Structures

For structures having flexible diaphragms, the coupling effects between torsion and translation becomes important. A torsional analysis can be quite cumbersome due to the large number of degrees of freedom generally required. This proposed research is directed toward finding suitable torsional response analysis techniques for taking advantage of symmetry in such structures having only small eccentricities. In this study, the translational seismic ground motion is treated as an effective rotational motion, thus allowing an uncoupled analysis taking advantage of the quasi-symmetry. Suitable techniques of correcting such analysis for translational coupling effects are investigated, so as to produce results sufficiently in agreement with those from conventional analysis. In addition, the feasibility of obtaining useful design information from uncoupled models excited into the nonlinear range is also examined.